A Mediterranean Undercurrent Seeding Experiment - Analysis and Modeling

9616952 Bower, Rogerson In this project, the PIs will continue the investigation of mechanisms of eddy (meddy) formation in the region of the Mediterranean outflow. Analysis of float data from a field experiment (AMUSE: A Mediterranean Undercurrent Seeding Experiment) will be continued, in conjunction with other data sets, particularly using satellite altimetry. Process-oriented numerical simulations will be used to address specific physical mechanisms associated with meddy formation and propagation.